CAREER: Political-Industrial Ecology of Petrochemicals: Energy Metabolism, Landscapes and Governance

This project will investigate regional transformation associated with resource development in shale gas basins. Petrochemicals in these regions are produced by chemically processing ethane, a by-product contained in shale gas, into inputs for manufacturing plastics. This project will study social and environmental relationships through the following activities: 1) analyze the potential environmental impacts along petrochemical supply chains; 2) stakeholder workshops with government, industry, civil society, and academic representatives to identify diverse perspectives on petrochemical development; 3) create an immersive virtual fieldtrip of petrochemical corridors; 4) design an online course on the energy history of shale gas basins; and draw on research, outreach and education components to identify potential negative socio-environmental outcomes of petrochemical development and mechanisms to mitigate those impacts.

The project will utilize theory and methods from political-industrial ecology, an emerging sub-field of geography. Political-industrial ecology aims to consider natural resource development in relation to their broader political-economic, historic, and environmental contexts. Through this political-industrial ecology framework the project will: A) produce a spatially explicit material and energy flow analysis of the petrochemical supply chain; B) develop a comparative governance analysis of the different federal, state, municipal regulations and private governance practices regulating petrochemical corridors; and C) perform scenario analysis of alternative governance arrangements that consider systemic risk and cumulative impacts. Collectively, the project will create a novel understanding of the inter-relationships between environmental systems, livelihoods and regulatory practices in petrochemical producing regions.